High Performance Liquid Chromatography in an Introductory Chemistry Curriculum

This project uses High Performance Liquid Chromatograph (HPLC) in second year chemistry which includes organic chemistry and analytical chemistry. The HPLC is used in Organic as a preparatory instrument for micro laboratory tecniques. In 8950447 Barkin This project uses High Performance Liquid Chromatograph (HPLC) in second year chemistry which includes organic chemistry and analytical chemistry. The HPLC is used in Organic as a preparatory instrument for micro laboratory techniques. In Analytical Chemistry HPLC is used to determine trace quantities of pollutants in surface, ground and drinking water. Plans are being made to implement this instrument in to introductory chemistry and also chemical instrumentation. The introduction of HPLC gives students the opportunity to have hands on experience with up-to-date technology. The institution is matching the NSF grant with an equal amount of funds.